An Isotope Ratio Mass Spectrometer and Autoanalyzer for Environmental Research

This award supports the purchase of an Isotope Ratio Mass Spectrometer, an Autoanalyzer, and related peripheral equipment for the stable isotope laboratory at Boston University. The laboratory provides service for a significant number of researchers at the University and at other institutions in the area who use stable isotope analysis to answer questions in ecosystem ecology, animal physiology, marine food web dynamics, coastal biogeochemistry, and paleo-oceanography. Besides increasing basic knowledge in these areas, the data to be obtained will contribute to the management of highly eutrophied coastal areas and to pest control practices in agriculture.